Structural Correlates of Function in Taste Buds

Taste specificity in the vertebrates is shown by activity in specific single nerve fibers. Peripheral receptor cells in taste bud organs can be classified into types based on morphology and ultrastructural features. Individual nerve fibers may innervate subpopulations of these receptor cells that are specifically activated by certain stimuli, but the evidence to date is scarce and controversial. This project is a pilot study to find out if classes of taste cells that are distinguishable by structural criteria respond preferentially to given chemical stimuli. The preparation will be from taste barbels of catfish because they are a very well studied model physiological system, able to discriminate among several chemical compounds. There are three novel aspects to the approach: 1) use of a metabolic label (2-deoxyglucose) for ultrastructural studies, 2) autoradiography with high-voltage electron microscopy, and 3) high-pressure rapid freezing for tissue preparation. The pilot work will determine if this approach yields useful information on the structure and function of the taste cells, and if the cells form functional clusters. This innovative project has a great potential impact on an important issue in chemosensory research, and on developing new technology for cellular biological studies.